CSULA Robert Noyce Scholarship Program

The California State University Los Angeles (CSULA) Robert Noyce Scholarship Program supports the preparation of 20 to 30 new science teachers over the 3-year project duration. In addition to increasing CSULA's production of highly diverse middle and high school science teachers with strong science content knowledge and pedagogical skills, the project 1) provides opportunities for pre-service science teachers at CSULA to network with in-service teachers and administrators in the Los Angeles Unified School District (LAUSD), a major employer of teachers prepared at CSULA, 2) leads to a sustainable agreement between CSULA and LAUSD to cooperatively track and monitor the effectiveness of new LAUSD science teachers prepared at CSULA, and 3) strengthens CSULA's role in providing induction-period support for new science teachers. Noyce Scholars are recruited from three main pools: 1) talented science majors at top community college feeders, 2) students with strong STEM backgrounds currently majoring in science and at CSULA, and 3) experienced STEM professionals in the Los Angeles area who are interested in changing careers to science teaching.